U.S.-Italy Transatlantic Workshop: New Combustion Models with Practical Fuels, Portofino, Italy, September 16-19, 2001

0104677
Puri

This award supports travel of fifteen US participants to a transatlantic workshop, "New Combustion Models with Practical Fuels," associated with the meeting of the Italian Section of the Combustion Institute in Portofino, Italy, September 16-19, 2001. The organizers are Ishwar Puri, of the University of Illinois at Chicago, Tiziano Faravelli and Eliseo Ranzi at the Polytechnic of Milan, Italy, and Antonio Cavaliere at the University of Naples, Italy. The objective of the project is to consider issues related to the current understanding and future challenges related to new combustion models in the context of practical fuels. Specifically, the workshop will address the flame chemistry of realistic fuels, the nature of the reaction zones in "new" combustion models, and state relationships for the laminar flamelet approach.

The workshop will be specifically designed to encourage international research collaboration through the development of a research agenda. International research experiences fur undergraduates, graduates, and postdoctoral researchers will be developed under the aegis of the Student Transatlantic Engineering Program at the University of Illinois at Chicago.